Engineering Sustainability 2017: Innovation and the Triple Bottom Line (ES17) Location: Pittsburgh, PA; Date: April 9-11, 2017

CBET - 1723949 PI: Beckman, Eric J.

The Mascaro Center for Sustainable Innovation at the University of Pittsburgh and the Steinbrenner Institute for Environmental Education and Research at Carnegie Mellon University will host Engineering Sustainability 2017: Innovation and the Triple Bottom Line (ES17) in Pittsburgh, Pennsylvania from April 9-11, 2017. This conference will bring together engineers and scientists from academia, government, industry, and non-profits to share results of cutting edge research and practice directed at development of environmentally sustainable buildings and infrastructure.

The conference will bring together engineers, architects, economists, and urban planners and managers. Plenary talks and concurrent oral and poster sessions will be organized around the following themes: green building design and construction; greening the indoor environment; sustainable distributed power for the built environment; sustainable urban drinking water, stormwater, and wastewater infrastructure; design of more sustainable transportation grids; using principles of sustainability to foster innovation and new product development. There will also be numerous planned opportunities for informal exchanges and networking, This conference will enhance interdisciplinary dialogue on environmental sustainability research with cross-cutting applications in both basic and applied sciences. The conference will have significant participation from students and young faculty members, so important to the next generation of innovations.